NSF Young Investigator

9457911 Jenkins A study in theoretical physics will be initiated. This work will calculate the low-energy properties of baryons using the techniques of quantum chromodynamics. The results will be compared with experiments. ***